Non Destructive in Situ Characterization for Liquefaction Analysis of Soils (Earthquake Hazard Mitigation)

Support will be provided for the conduct of field testing experiments in Japan. The investigator has developed instrumentation to measure in-situ soil properties. The Formation Factor Probe is used to characterize the grain and aggregate properties, including a measure of mechanical anisotropy. The Dielectric-Conductivity Probe provides a means to continuously monitor the soil type and porosity. This data, in conjunction with a liquefaction analysis developed by the PI, is used to make a priori predictions of pore pressure generation and dissipation at a site.